Paleozoic Conodonts from the Arctic Ocean and their Significance for the Tectonic Evolution of the Western Arctic Basin

9321204 Clark This award supports a study of Paleozoic conodonts from cores collected on the Northwind Ridge in the Arctic Ocean. The conodonts include both Permian and either Ordovician or Silurian forms and were derived from submarine weathering of Paleozoic rocks underlying Northwind Ridge. Study of these conodonts is expected to lead to fingerprinting of the Paleozoic stratigraphic units. This information will provide constraints for the original location of the crustal block represented by the Northwind Ridge and this, in turn, will help to constrain models of the tectonic evolution of the Amerasian Basin portion of the Arctic Ocean basin. ***